Dynamics of Biomolecules Studied by CW and TD EPR: Simple Nucleic Acids

Hopkins There is still much to learn about the structure and dynamics of various sequences of DNA that are critical to understanding its biological function. Drs. Robinson and Hopkins will use NMR and EPR techniques to further their research. They will also continue to develop computerized theoretical models to simulate data, develop data analysis techniques and develop new methodologies for obtaining data and extracting useful dynamic information. The work will focus on the structure and dynamics of DNA by examining various forms of different secondary structure. It is currently unknown whether there are dynamic differences between these forms of DNA and, if they exist, the role they may play in biological function.